Justice During Civil Conflict

Justice and rule-of-law measures have often been touted as a solution to prevent the resumption
of violence following conflict; yet little work has been undertaken to understand the prevalence
of these practices while conflict remains ongoing. These measures include trials, truth
commissions, reparations, as well as alternative accountability processes such as amnesties,
purges, and exiles. While existing research has focused on the implementation of justice
processes once conflict has ended, pilot data by the PIs suggests that these same practices are
often implemented during violence. The current state of the literature provides little theoretical
understanding as to when and why during-conflict justice processes are implemented and their
likely effect on the duration of conflict and durability of peace.

This project investigates the implementation of during-conflict justice to understand which
processes, if any, a government implements during internal armed conflicts and in which
contexts such processes are pursued. Through the collection of a new cross-national dataset
covering the implementation of justice measures during all civil wars since the Second World
War, this research greatly improves our understanding of the presence of during-conflict justice
and expands the current state of research on both the implementation of justice processes and the
dynamics of conflict more broadly. This project provides an evidentiary basis to determine the
conditions under which implementation is more likely, to facilitate the development of these
conditions in countries that may benefit from justice measures and to prevent the development of
circumstances detracting from these goals. Furthermore, the results of this research will be used
to understand the potential misuses of justice measures for goals not related to conflict resolution
and promotion of the rule-of-law, leading to more effective conflict termination strategies and
shortening the duration of civil conflict.